Acquisition of an EPR Spectrometer

9222752 Greenaway The purchase of a multi-institutional, multi-user EPR spectrometer to be housed in the Department of Chemistry at Clark University will complement the Worcester Consortium Center for Magnetic Resonance, located in the same building, to provide facilities for biological and chemical research for institutions throughout Central New England. A total of ten educational institutions throughout New England are represented. Five specific research projects of biomedical emphasis and three of physico-chemical emphasis are proposed, as well as a number of secondary projects. The major users propose studies of: the structure and mechanism of action of lysyl oxidase and related copper-containing amine oxidases; the structures and mechanisms regulating selection and transfer of fragments of antigenic proteins into the antigen- binding sites of major histocompatibility complex molecules; the improvement of EPR dosimetric techniques with emphasis on the use of bone marrow and bone fragments as in situ dosimeters; the cytochrome P-450 monooxygenase-mediated mechanisms of toxicity of chlorocarbons; the effects of metal-binding in the neurochemically- important protein calmodulin on conformation and interactions with intracellular target enzymes and inhibitor proteins; the low-temperature magnetic properties of transparent bimetallic layered ferrimagnetic systems; the nature of the radical sulfur species present in aqueous solutions and at electrode surfaces; quantum effects n linear antiferromagnetic chains.